NMR Instrumentation for Enhanced Undergraduate Instruction

The level of instruction of undergraduate chemistry is being improved through the acquisition of a Proton Nuclear Magnetic Resonance Spectrometer. Existing courses being impacted by this proposal include: Organic Chemistry, Inorganic Chemistry, Physical Chemistry, Chemical Instrumentation, General Chemistry, and Senior Research. In addition two courses for professionals, "Chemical Instrumentation" and "Microscale Qualitative Organic Analysis" are being improved. The instrument is making it possible to integrate the laboratory experience with the lecture material in the area of structure identification, quantitative analysis, kinetics, and industrial chemistry. The grantee is matching the NSF award from non-Federal funds.